Purchase of X-Ray Diffraction Equipment

The technique of X-ray crystallography is a powerful tool for the determination of the molecular structure of compounds as diverse as small polypeptides and complex metal clusters. When combined with the latest computer software, the technique is becoming remarkably easy to put into practice. Access to X-ray crystallographic instrumentation markedly improves the ability of chemists to carry out frontier research. The Department of Chemistry at SUNY, Buffalo will use this award from the Chemical Instrumentation Program to help acquire X-ray diffraction equipment. The areas of chemical research that will be enhanced by the acquisition include the following: 1) Synthetic and mechanistic organometallic chemistry 2) X-ray crystallographic studies of metal carbonyl clusters 3) The synthesis, structure and chemical reactivity of metal carbonyl clusters 4) The study of coordination complexes 5) The study of organo-group 13 compounds.